Studies of Basic Symmetries and Fundamental Constants with Muons and Pions

This project is focused on the testing of basic symmetries,
and determination of fundamental constants, of the standard model.
The proposed research involves the muLan/muCap experiments at
the Paul Scherrer Institute, Switzerland, and expt. 869 at the
TRIUMF facility, Canada. The experiments will determine the Fermi
constant of the electroweak interaction to part-per-million
accuracy, the induced pseudoscalar coupling constant of the
proton's weak interaction to six percent accuracy, and test isospin
symmetry in pion-nucleon interactions to high precision. Both the
muLan experiment and the muCap experiment at PSI involve high
precision measurements of positive/negative muon lifetimes and
utilize new technologies including an intense pulsed muon beam,
novel detectors, and high-speed electronics and data acquisition.
Expt. 869 utilizes a reconfigured RMC spectrometer as a pi0
spectrometer for the investigation of the elementary interaction
between pions and nucleons. Both muCap and expt 869 will address
the realization of two important symmetries of quantum chromodynamics
-- chiral symmetry and isospin symmetry -- in low energy interactions
of protons and neutrons. The determination of the Fermi constant
by the muLan experiment will both determine a fundamental parameter
for all electroweak calculations and facilitate the precision testing
of the standard model.

The project includes several areas for broader impact. The PI will
continue his involvement of physics majors, computer science graduate
students and physics graduate students in both the experimental program
and the related development of high-speed electronics and data
acquisition. The PI will also continue his efforts in the teaching of
symmetry principles and conservation laws in classes for physics
and engineering majors. Moreover, the measurements themselves are
of textbook quantities (e.g. the Fermi constant and the muon magnetic
moment) and have broad impact in their own right.